Homotopy Theory and Its Applications

9802516
Ravenel
Professor Ravenel's current research is focused on the telescope
conjecture of stable homotopy theory, one of several conjectures he
formulated 20 years ago, and the only one that is not well understood at
this time. Other conjectures he made then have since evolved into the
nilpotence theorem of Devinatz-Hopkins-Smith, the periodicity theorem of
Hopkins-Smith, and the the thick subcategory theorem. All of these are
part of the chromatic approach to homotopy theory, which continues to
attract the interest of numerous algebraic topologists. More
specifically, Ravenel has constructed and will study the Thomified
Eilenberg-Moore spectral sequence, which includes the usual
Eilenberg-Moore spectral sequence, the Adams spectral sequence, and the
Adams-Novikov spectral sequence as special cases. He also has a program
for the computation of the Morava K-theory of interated loop spaces of
spheres.
Stable homotopy theory is a branch of algebraic topology, which has
been central to pure mathematics since its founding by Poincare a century
ago. It has been a continuing source of new ideas in algebra and geometry,
as seen in the work of Lefschetz on complex algebraic varieties in the
1930's, the efforts leading to the proof of the Weil conjectures of
arithmetic algebraic geometry in the 1960's and 1970's, and most recently,
in the successful application of motivic cohomology to the Milnor
conjecture in algebraic K-theory by Voevodsky in 1997. It has also found
numerous applications in differential geometry, in graph theory, and in
theoretical physics. The University of Rochester is one of the leading
centers of algebraic topology in the world.
***